Testing the Efficacy of the Strategic Observation and Reflection (SOAR) for Math Professional Learning Program

Professional development is an important way for teachers who are currently in classrooms to learn about new best practices in mathematics teaching and learning and improve their practice. Little is known about what types of professional development (PD) and teacher mentoring programs support teachers' improved practices and ultimately lead to gains in student learning. The purpose of this project is to develop, implement and test a professional development program, SOAR for Math, to build capacity for mentors and teachers to improve English learner's academic language development and mathematical content understanding. The Discovery Research preK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This study will test the efficacy of the Strategic Observation and Reflection (SOAR) for Math professional development program. The mixed methods study is designed to answer several research questions: (1) What is the impact of teachers' participation in SOAR for Math on student achievement outcomes for current and recent grade 3-6 English learner students in treatment schools? (2) What is the impact of SOAR for Math on treatment school teachers' knowledge and practices related to their academic language and literacy development instruction for current and recent English learner students, specifically scores on the Knowledge/Use Scale? (3) What is the impact of SOAR for Math on treatment mentors' knowledge and practices related to their academic language and math instruction? A randomized controlled trial will be conducted in 80 elementary schools in one California school district. Schools serving third- through sixth-grade general education students will be eligible to participate. The research team will randomly assign 40 schools to provide SOAR for Math training to mentor teachers and 40 schools to comprise a control group receiving business-as-usual professional development. Two mentors per school will participate in the study. Measures will include state math scores and a variety of observations and questionnaires to assess fidelity of implementation. Data will be analyzed using hierarchical linear modeling to account for the nested data structure.